Quartz Crystal Microbalance Studies of Atomic-Scale Friction

w:\awards\awards96\num.doc 9705259 Krim This experimental research project focuses on the atomic scale understanding of frictional phenomena, including those at liquid- solid interfaces. A set of experiments involving quartz crystal microbalance (QCM) studies of friction in controlled environmental conditions and well-defined contact geometries will be performed. Some of these seek to explore the fundamental mechanisms of energy transfer at a sliding interface, while others will investigate model lubrication systems which are of relevance to actual engineering applications. One system to be studied consists of selected rare gas and alkane layers sliding on clean (111) metal surfaces. Model lubrication systems under study include atomically-uniform C60 surfaces in contact with a liquid; and hexanes and synthetic lubricants in contact with atomically uniform metal surfaces. In the latter systems properties of interest include the viscosity and slippage of molecularly thin lubricant layers forming immediately adjacent to the surface, topics which are related to the performance of a lubricant in the transition region between elastohydrodynamic and boundary lubrication. %%% This experimental research project is devoted to improving the scientific understanding of friction forces and related heating effects. An understanding of these effects on the basic atomic scale is sought, making use of advanced experimental techniques, including the quartz crystal microbalance (QCM) which can detect single atomic monolayers. The work focuses on mechanisms of energy transfer during sliding friction; and the viscous and elastic properties of liquid lubricants close to a solid surface. Improvements in understanding here can be of great importance, because the range of technology involving mechanical motions is broad and has great economic importan ce. The work is interdisciplinary in its nature and the graduate students in this program will receive an excellent education preparing them for employment in industry, government or education. ***